Conference on Particle Production Near Threshold; Nashville,Indiana; October 1-3, 1990

This proposal is for funds to partially defray expenses for domestic transportation, subsistence, and proceedings publication for a Conference on Particle Production Near Threshold. This conference is one in a series spanning 10 years held nearby Indiana University and McCormack State Park. The meeting has direct importance to the planned research program at the Indiana University Cyclotron Facility. This years conference deals with many forefront issues that will be attacked by the newly operational IUCF cooled beam facility and by facilities under construction abroad, as well as some of the existing nuclear and particle facilities. Included among the subjects are threshold behavior of pion, kaon, eta, and charmed meson production, as well as nucleon resonance and hyperon production.